Stable Isotopic Studies of Fluid Flow During Low Pressure Regional Metamorphism in an Accretionary Complex, Eastern Chugach Mountains, Alaska

Theoretical models of mass transport to metamorphic terranes present petrologic and stable isotopic criteria for recognizing the passage of fluids through metamorphic rocks and may provide techniques for quantifying the pattern and extent of fluid flow. This project will attempt to determine the scale and extent of fluid infiltration responsible for quartz veining and 18O depletions in the Chugach metamorphic complex, Alaska. This work will take advantage of the recent mapping and structural work on these rocks done by workers at Rice University. Results should provide a more realistic evaluation of the role of fluid flow in the thermal evolution of the Chugach terrane and by analogy to other similar convergent arc-margins.